CSR-PDOS: A Structured Development Environment for Building Robust, Higher Performance Distributed Services

Designing and implementing robust and high-performance distributed
systems remains a challenging, tedious, and error-prone task.
Building correct systems is difficult because of the asynchronous,
heterogeneous, failure-prone and adversarial environments
these systems are subject to.
Tracking the source of performance problems often
reduces to searching for a needle
in a haystack: among millions of individual message
transmissions, algorithmic decisions, and a large number of
participating nodes, which network link, computer, or low-level
algorithm results in performance degradations?

This research aims to create a programming environment for building
distributed systems, that includes
(1) programmings language that make the
structure of the system explicit in a manner that
allows the compilation of readable high-level descriptions into
high-performance implementations, and
(2) tools that can exploit the explicit structure to
perform automatic system level analyses that will
help developers locate, understand and fix behavioral anomalies in deployed systems.
By increasing our understanding of which aspects of the development process
are automatable, this research will show the high-level aspects
where human creativity needs to be focused, without paying the price of
performance penalties.
This research can lead to the availability of novel
architectures and services as an increasing
developer population is empowered to design and build
these systems